US-Jordan Cooperative Research: Compressed Strange Nuclei

0080491
Vary

Description: This award is for support of a cooperative project by Dr. James Vary, International Institute for Theoretical and Applied Physics, Iowa State University, Ames, Iowa, Dr. Harry Lee from Argonne National Laboratory and a Jordanian team led by Dr. Mahmoud Hasan, Chairman of the Physics Department, Applied Science University, Amman, Jordan. They plan to apply the constrained Hartree-Fock method to predict the properties of multi-hyperon nuclei at normal and above-normal densities accessible to relativistic heavy-ion collisions.

Scope: The Applied Science University (ASU) of Jordan, the Argonne National Laboratory (ANL), and the International Institute of Theoretical and Applied Physics (IITAP) at Iowa State University, each have unique and complementary strengths needed to achieve the stated objective. Students from Iowa State University and the Applied Science University will participate and benefit from this collaborative project. A key element of the plan to efficiently carry out this research project is to develop and operate a "virtual laboratory" over digital networks to exchange research notes, figures and tables, perform calculations, discuss results and draft papers for publications. This proposal meets the INT objective of encouraging collaboration by US and foreign scientists in areas of mutual benefit.